A Cosmic Ray Observatory for Ultra High Energy Processes (Physics)

This award to Professors Loh, Cassiday and Sokolsky of the University of Utah is for the continued operation and upgrade development of the "Fly's Eye" facility. This unique apparatus measures the nitrogen fluorescence light produced in cascades in the atmosphere initiated by ultra-high energy cosmic rays. The experiment studies the energy spectra and chemical composition of these cosmic rays. The award also supports the initial design and prototype development stages of a upgrade of the facility to make a ten-fold increase in its sensitivity. This facility has already produced exciting new results which bear on the interaction of the cosmic rays with the three degree photons left from the "big bang" and on the mechanism of accelerating particles to energies much higher than ever achieved with a man-made device. In the future, it will achieve greater sensitivity and may detect the presence of cosmic strings.